Mathematical Modeling of Heterogeneous Materials

Goldsztein
DMS-0807269

The goal of this project is to develop mathematical tools
for the understanding and prediction of the behavior and
properties of heterogeneous materials. In these studies, the
length scale of the heterogeneity is generally much smaller than
the size of the material. The particular problems considered
here are the transport of solute and heat in porous media and the
understanding of the flow within poroelastic materials due to
time dependent applied loads. The particular mathematical
techniques to be used include asymptotic and homogenization
methods, numerical simulations and modeling.

The problems studied here are motivated by applications of
scientific and technological interest. Examples where solute
transport in porous media plays an important role, and thus the
results of this project have an impact, include: the transport of
contaminants in soils, the transport of nutrients in bones, the
intrusion of salt in fresh water in soils near ocean coasts,
movement of minerals (e.g. fertilizers) in soils, recovery
techniques in oil reservoirs, etc. Heat transport in porous
media plays an important role in the transport of reactive
solutes in rocks and soils (the reactions produce heat and the
transport of that heat is coupled with the fate of the solutes,
nuclear waste is included here), solar receivers, building
thermal insulation materials, fuel cells and drying technology.
Additionally, while flow within poroelastic materials occurs in
many systems such as soils and rocks, a main motivation of the
project is the transport of nutrients in bones and the stresses
generated by the flow within bone, which are believed to play a
role in the remodeling of the bone (i.e. change of bone shape and
size due to gain and loss of bone mass in different regions of
the bone).